Logistics Support for Global Seismic Station at the South Pole

This award provides logistics-only support for the installation, maintenance and operation of IRIS seismic equipment at Amundsen- Scott Station, South Pole, Antarctica. The Incorporated Research Institution for Seismology (IRIS) is a consortium of research institutions created to implement critically needed national facilities for support of seismological research on the Earth's interior in the coming quarter century. IRIS has a membership of 57 universities and includes nearly all U.S. universities with seismological research programs. IRIS has developed a 10 year plan for the implementation of a Global Seismographic Network (GSN) of about 100 broadband, digital, wide dynamic range stations, with data transmitted via satellite in a broadcast mode whereby any site on earth can access the complete global data set, if desired, in real time. The installation of a state-of-the-art, broad-band, digital seismic observation for the South Pole is part of an effort by the National Science Foundation to improve seismic instrumentation globally. A modern seismic station at the South Pole will provide a crucial link in the global seismic network and is essential for seismic studies of the Antarctic continent.